Minorities in Mathematics, Science, and Engineering RegionalCenter (M2SE)

This award initiates M2SE (Minorities in Mathematics, Science and Engineering Regional Center). M2SE is a consortium of education, industry and community organizations whose goal is to increase the number of minorities in mathematics, science and engineering professions. The Center program is a comprehensive sequence of activities designed to nurture and support minority students interest in mathematics and science beginning in elementary school and continuing through college. The M2SE Center activities: (1) provide students with extended-time and enrichment experiences such as after school programs, summer institutes and enrichment courses, advanced workshops, research apprenticeships, high school college bridge/transition programs and retention systems; (2) provide supplemental instruction to elementary, middle and high school teachers to enrich resources and techniques for teaching math, science and engineering skills; and (3) create opportunities for direct interaction between math, science and engineering professionals with students at all educational levels.